Engineering Reserach Equipment Grant: Langmuir Trough System

The principal investigators propose to acquire a Langmuir Trough thin film deposition system. This equipment will deposit monomolecular layers or multiple-monomolecular layers of organic molecules on substrates of various types by a highly-controlled dipping technique. Films deposited in this manner, so-called Langmuir-Blodgett films, show promise of application in the fields of electron beam microlithography, flat displays, chemical and biological sensors, and a number of other electronic applications. This support is co-funded by the Solid State and Microstructures Program in the Division of Electrical, Communications, and Systems Engineering and the Thermal Systems and Heat Transfer Program in the Division of Chemical, Biochemical and Thermal Engineering.